Block Multigrid Implicity Solution of the Three-Dimensional Euler Equations

Research into the implementation of multigrid on block-structured grids will be conducted. The major area of investigations is the intergrid boundaries, common to block-structured grids. The treatment of the boundary conditions is a crucial component in achieving efficient and accurate numerical schemes. Investigation into new ways of implementing the boundary conditions in a multigrid multiblock scheme is proposed here. Areas of investigation are data structure, interpolation and restriction operators and conservation across boundaries. The resulting new method will be implemented on shared-memory parallel computers to achieve high turn around times.